Advanced Materials for Catalytic Combustion

9361940 Pfefferle Catalytically stabilized thermal combustion (CST combustion) offers significant advantages for high efficiency , ultra-low emissions combustion applications in gas turbine engines, burners, incinerators, and even internal combustion reciprocating engines. With CST combustion, nitrogen oxides emissions can be effectively eliminated without aftertreatment by enabling combustion at a temperature below the nitrogen oxides formation level. Combustion efficiency is maintained at a high level and carbon monoxide/unburned hydrocarbon emissions are kept low. Yet limits on the ability of the catalyst and its substrate to survive high temperatures (e.g. 1200C - 1600C) in reactive atmospheres have severely restricted practical applications. Doped aluminum base oxides such as hexaaluminates and perovskites offer the promise of a thermally stable, Catalytically active monolithic catalyst material through the proper choice of dopant atoms. However the nature of the dopant residence and the effect of the dopants on the morphology of the hexaaluminate macrostructure is uncertain. We shall investigate the affects of doping and anchoring catalytically active atoms into aluminum based oxides for use in CST combustion. In particular, we shall investigate the morphology, sintering resistance, dopant site residence, and catalytic activity as a function of dopant concentration and processing. ***